Constructed Response Exercises in Secondary School Science Assessment

WPC. 2 B V J Z Courier T ? x x x x 6 X @ K X @ HP LaserJet IIISi PostScript(LPT3:) HPLAIIPO.PRS x @ h h h h SX @ 2 , < V J Z #| x Courier 10cpi ? x x x , P x 6 X @ 8 ; X @ HP LaserJet IIP HPLASIIP.PRS x @ , 8 t 0q XgX @ 2 , ` ` Abstract 93 53311 Bock This is a proposal to evaluate the effectiveness of essay questions in biology designed to test the student's understanding of three main aspects of scientific work inquiry, explanation, and confirmation. Scoring protocols based on ratings of content knowledge and process skills will be developed and tested for feasibility and reliability. In addition, a form of holistic scoring based on comparative judgment rather than rating will be investigated as a possible teacher based method of scoring essay test questions in science. The procedures will be evaluated in a field trial associated with the California Golden State Examination in Biology.